Mathematical Sciences: Harmonic Analysis on Reductive Groups

Huang will study the relationship between representations of a semisimple Lie groups and those of its covering group. He will investigate how their unitary duals and Kazhdan-Lustig conjecture are related. He will also extend the major results of harmonic analysis on symmetric spaces to a certain class of homogeneous spaces which he terms polar. These are homogeneous spaces for which the restricted adjoint representation is polar in the sense of Dadok. The theory of Lie groups, named in honor of the Norwegian mathematician Sophus Lie, has been one of the major themes in twentieth century mathematics. As the mathematical vehicle for exploiting the symmetries inherent in a system, the representation theory of Lie groups has had a profound impact upon mathematics itself, particularly in analysis and number theory, and upon theoretical physics, especially quantum mechanics and elementary particle physics.